Purchase of a Mass Spectrometer Data System and a Flow Fast Atom Bombardment Source For Chromatography/Mass Spectrometry

The Department of Chemistry at the University of Tennessee--Knoxville will use this award from the Chemistry Research Instrumentation Program to help purchase a mass spectrometer data handling system. The areas of chemical research that will be enhanced by the acquisition include the following: characterization of biochemical systems, including farnesylated proteins and aberrant enzymes potentially linked with carcinogenesis, fundamental studies of fullerene chemistry, gas-phase ion chemistry, nonlinear chromatography and kinetics monitoring. Mass spectrometry is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic and organometallic molecules. The acquisition of a mass spectrometer is essential for the prosecution of frontier research in many fields in chemistry, and a modern data handling improves the instrument control and the efficiency of the facility.